The Fluorescence Spectrophotometer in the Undergraduate Chemistry and Biology Curriculum

Biological Sciences (61)

This joint project of the Departments of Chemistry and Biology provides the core for a teaching module designed to integrate introductory biology and chemistry courses. Upper-level courses across the two disciplines are also being enhanced. The courses affected are designed to increase the science literacy of non-SMET majors and integrate research techniques and design into undergraduate courses.